Assisting CS, CE, and EE Student Success (ACCESS)

This project is awarding scholarships to academically talented and financially needy students and is supporting the scholars through a variety of structures and programs. Women are being especially targeted for support. Student scholars are enrolled as computer engineering, electrical engineering, or computer science majors. The scholarship program consists of academic and residential programs designed to build community and to ultimately increase the retention of students through to successful graduation. Scholars enroll in several courses together to improve their sense of community and to provide a support structure for successful course completion. A residential component serves to increase the sense of community to an even greater extent.